Workshop: Composites 2000 - An International Symposium on Composite Materials, October 5-8, 1999, Newark, DE

The University of Delaware Center for Composite Materials is planning "Composites 2000: An International Symposium on Composite Materials" to be held in October 5-8, 1999. The objective of the symposium is to highlight advances in composites materials and manufacturing processes by bringing together worldwide leaders in the field to share their extensive knowledge with representative of industry, governments, and academia.
Four theme areas are planned: Materials and Synthesis, Processing Science, Mechanics and Design, and Performance. These are the core areas of research in this country and abroad, aimed at providing a better fundamental understanding that will enable the exploration of new opportunities and the development of new applications for composite materials. Coverage will consider current state of the art complemented by the provision of insights into the future of advanced composites for future product manufacture. Invited speakers will include internationally recognized experts to provide keynote talks and session papers.